Collaborative Research: CER: Teaching Beginning Programming Students to Seek Effective Help with AI

Students learning computer programming today often turn to artificial intelligence (AI) systems like ChatGPT and GitHub Copilot for help. Unfortunately, they often use AI in ways that reduce learning, such as asking for full solutions, copying code they do not understand, or even asking AI to solve the wrong problem. This project aims to teach beginning programmers how to ask AI for help in ways that support learning rather than impair it. The key idea is to improve students' awareness of their problem-solving process and to teach them how to use this knowledge to construct more effective AI help requests. This project will produce new evidence-supported instructional materials and software tools for computer science teachers and students. It addresses the national need to prepare students for a workforce where strong problem-solving skills are essential for working effectively with AI and evaluating the quality of its outputs.

In order to foster the kind of AI use that promotes the learning of fundamental computer programming practices, this project adopts novel interventions targeting metacognition. Metacognition is the awareness of one's problem-solving process, including the steps needed to solve a problem, the current step, the strategies adopted for each step, and the outcomes of using such strategies. The research team will develop a classroom curriculum that teaches metacognition for solving programming problems and encourages students to construct AI help requests that are both pedagogically sound and appropriate to their current problem-solving stage. To further enable ongoing practice and achieve sustained behavioral change, the researchers will prototype a web extension that tracks AI usage and provides real-time feedback. The feedback will discourage help-seeking that simply asks for the answer, encourage the use of metacognitive knowledge, and provide tailored suggestions for how to ask for help. All interventions will be evaluated in the lab and authentic classroom settings for how they change students' behaviors, metacognitive awareness of problem-solving, and learning outcomes in the ability to independently solve programming problems.